SBIR Phase I: A Single-Use, Widely Dispersible Wireless Sensor System

This Small Business Innovation Research (SBIR) Phase I project is to develop and apply magnetoelastic sensors as a single-use, widely dispersible distributed wireless sensor system.

The commercial application of this project will be in protection against bioterrorism.